DISSERTATION RESEARCH: Phylogeny of the Marine Bristle Worm Family Eunicidae (Eunicida, Polychaeta, Annelida) Using Molecular, Morphological and Developmental Data

This dissertation will establish the phylogeny of Eunicidae, test the monophyly of
the family and its genera, and analyze ontogenetic and along-the-body variation of
features. We will use multiple sources of evidence - molecules, morphology and
development - to produce more informative hypotheses of primary homology and
consequently a more robust phylogeny. This will allow us to revise Eunicidae and its
genera and to test the phylogenetic content of traditional polychaete morphological
characters. It will also offer a background for future phylogenetic studies of annelids
concerned with similar issues of homology of highly modified, variable or serially
repeated structures.
We request funding for Ms. Silva to conduct developmental studies using specific
staining and confocal microscopy at the Smithsonian's Fort Pierce lab, and to travel to
Dr. Ken Halancych's lab (Auburn University) in order to learn molecular techniques
specific to annelids. This funding will allow us to expand the project from one that uses
traditional anatomical characters and molecular markers to a more robust study
incorporating ontogeny and new genetic characters.
Broader impacts: This study will train a graduate student in developmental and
molecular genetics of annelids, and strengthen ties between labs at George Washington
University, Smithsonian Institution, and Auburn University.